ARFMP: The Renovation of Behavioral Research Facilities

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to Allegheny College for the repair and renovation of Carnegie Hall which houses the Department of Psychology's behavioral science research and research activities. This building was constructed in 1915 and last renovated in 1960. The ARFMP grant of $200,000 and $216,667 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the current research infrastructure by redesigning and equipping the existing research space in keeping with changes in the study and practice of psychology in the last 30 years. The crowded, outmoded facility will be converted into a more efficient high quality space for research which will foster better focus, more continuity, and needed privacy in the conduct of student projects, and it will also enable the conduct of a greater range of research activities than is currently feasible. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of quality undergraduate students in a research- based curriculum in which they are actively engaged in hands-on experimentation and research from an early point in time in their academic careers. Allegheny College has a good record of students majoring in science and continuing in science-related fields, and the renovation of these facilities will help the College maintain that record.